High Speed Wireless Infrastructure

9413346 Hills This award will establish a high speed, wireless data communications infrastructure on the campus of Carnegie Mellon University. The research efforts supported by this new infrastructure are devoted to making ubiquitious wireless data communications service available to small mobile computers. The research activities to be supported by the new infrastructure are the CODA project, which is concerned with shared data access over wireless links; the development of a series of wearable computers; development of the Mobile Host Routing Protocol, which provides network layer addressing service to mobile terminals; and a computer model, which is being used to explore the engineering and economic aspects of wireless networks. The applications being developed are: the FRIEND system, which supports emergency management, the Health Link system, which supports home health care; and Wireless Andrew, a proposed application which will make available on wireless terminals the full functionality of "Andrew," Carnegie Mellon's campus computing network. ***